NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of developmental genetics and is entitled "Isolation of sex determination factors from the Caribbean Fruit Fly." The Caribbean fruit fly, Anastrepha suspensa, is an important economic pest and also an excellent subject for evolutionary studies. Three principal components of the sex determination hierarchy (Sxl, tra, and dsx) are being isolated and characterized in this insect based on what we know about this process in Drosophila.